Processing of Choline Acetyltransferase

Nervous system function is tied closely to the development and maintenance of neurons in both the central and peripheral nervous systems. Molecular technologies developed over the last two decades have greatly enhanced our ability to understand the cellular mechanisms that mediate these processes, thereby highlighting new areas of research. One such area has included questions of how the neuron sorts its several thousand proteins following synthesis, which is then followed by cellular transport of each one to specific locations. The general mechanisms used to accomplish these tasks are used by all cells throughout their existence and play important roles in cellular development, the reaction of cells to stress and the maintenance of the cell's functions. By studying the above process for molecules like choline acetyltransferase, the biosynthetic enzyme for the important neurotransmitter acetylcholine, we can begin to understand how neurons of this particular subtype continue to carry out their contribution to neuron-neuron communication over time. The projects undertaken in this study have been designed to exploit what is known of protein transport and apply this to what has been learned about the structure of choline acetyltransferase. This enzyme possesses an extra statement on its amino terminal end that has the appearance of a structural domain capable of mediating translocation. This will be tested by examining if the sequence is removed as a result of the transport process. Similar types of proteolytic processing are commonly observed for protein translocation in other systems. If such a segment removal occurs, then it may identify one mechanism by which proteins critical to neurotransmission are deployed. In addition, this may lead to a better understanding of the process by which proteins are recognized and how the structure of neurons are maintained.